Research Experience for Undergraduates in Chemistry

This Research Experience for Undergraduates (REU) site project is in the field of chemistry. For a three-year period beginning in April 1989, eight (8) undergraduate students will spend ten (10) weeks engaged in research on projects in Analytical, Inorganic, Organic, Physical, and Biochemistry, under the direction of a faculty member in the School of Chemistry. Each student will be associated with an individual faculty member who has an active research program in an area of interest to the student. The participant will learn by work on their own project, and by observation of other members of their research group, how to attack a research problem from design through execution and interpretation of experiments. Projects are designed to give the undergraduate scholars maximum flexibility in their experimental approach and will allow an individual to work as independently as he/she is capable of. Regular research conferences and oral presentations (two during the ten weeks) will serve to acquaint every participant with the nature of all the other projects and provide a basis for individual discussions throughout the summer.